San Diego Mathematics/Science Academic Enrichment Project

The San Diego Mathematics Academic Enrichment Project is a three-year program for elementary teachers of underrepresented minority students, undergraduate students who are majoring in mathematics education, and minority elementary students. The project will also provide mathematics enrichment activities to 150 2nd, 3rd, and 4th grade students and their families. The instruction will be in the form of workshops where the children will be taught, in part, by minority San Diego State University Engineering, Science, Mathematics and Education students. The instructional activities will take place in a San Diego public elementary school after school three days each week. University, School District, Church, and Community Organizations are forming a multi-faceted partnership to provide the enhancement, preparation and intervention in a laboratory setting. This consortium will make a 60% match of National Science Foundation funds.